Hilbert Modular Forms and Galois Representations

A conjecture of Serre predicts that certain 2-dimensional mod p
representations of Galois groups over Q arise from modular forms,
and it further predicts the level and weight of the form.
The principal investigator and his collaborators are investigating
a possible generalization of Serre's conjecture to the context
of Hilbert modular forms and Galois groups over totally real fields.
The prediction of the weights suggests interesting new phenomena, and
the immediate aims of the research are to investigate these phenomena
and provide numerical evidence for the generalization.

Serre's conjecture and its generalizations can be viewed as part of
Langlands' program, which predicts a deep correspondence between objects from
algebraic geometry (solution sets of polynomial equations, such as elliptic
curves) and objects from representation theory (functions with symmetry
properties, such as modular forms). While there has been significant
recent progress (for example, the investigator and collaborators,
building on Wiles' work on Fermat's Last Theorem, proved that all
rational elliptic curves arise from modular forms), Langlands'
program remains largely conjectural. The links it provides between
two seemingly different branches of mathematics reveal properties
of the integers, which can, in turn, have applications to cryptography.